Mathematical Sciences: Algebraic Geometry

This research is in algebraic geometry and will consider three specific problems. One will be the study of Picard bundles on the Jacobian of an algebraic curve and higher order differential properties of the Abel-Jacobi mapping for a curve. Another will be the study of projective coordinate rings of abelian varieties and complete homogeneous spaces under affine algebraic groups. The last will be the study of the singularities of invariant hypersurfaces in representation space of reductive groups. Algebraic geometry is one of the most active areas of mathematical research today. Its applications stretch to all areas of mathematics and becoming more and more important in computer science and engineering as well.